Oceanic Faults in the Josephine Ophiolite: Geometry, Fluid Flow, and Magnetism

The Josephine ophiolite is a large, complete ophiolite in northwestern California, which probably formed by a slow- spreading mid-ocean ridge. Previous work has indicated that magma chambers were episodic resulting in structural extension and tilting of the entire crustal sequence above an upper mantle detachment. This continuation will focus on developing criteria for oceanic faults, including serpentinite shear zones above the detachment, and the relationships between magmatism, faulting and hydrothermal metamorphism. Results are expected to provide insights into several aspects of slow-spreading mid-ocean ridges and their recognition in ancient examples.